Scientific Computing Research Environments for the Mathematical Sciences - SCREMS

The Department of Mathematics and Statistics at the
University of Maryland, Baltimore County (UMBC) will
purchase a distributed memory parallel computer which
will be dedicated to the support of departmental
research in the mathematical sciences. The principal
investigators intend to purchase a 64-processor Linux
cluster consisting of 32 dual-processor computational
nodes connected with a high-speed Myrinet network and
equipped with a significant amount of fast central disk
storage using a RAID controller. All researchers plan
to use the Message Passing Interface (MPI) to provide
reliable portability.

The equipment will be used for multiple research projects,
including, in particular, the areas of applications in
semiconductor manufacturing, quantum chemistry,
bioinformatics, computational neurobiology, and
constrained mechanical systems. The research projects are
unified by the need to use efficient parallel computing
to enable the solution of practically relevant problems.
The research areas addressed are of current national
interest and involve solution methodologies that cut
across these disciplines and will lead to more efficient
simulation techniques in other areas. The computer will
also play a role in the department's education mission,
the university's MARC U*STAR (Minority Access to Research
Careers) program, and in the principal investigators'
Research Experiences for Undergraduates activities, by
involving students at various levels in contemporary
methods in scientific computing.